Technical Services

9700565 Whitledge This award to University of Texas at Austin provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Longhorn, a research vessel operated by University of Texas Marine Science Institute as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct oceanographic studies in the Gulf of Mexico in 1997. ***